37th Annual Meeting: Wind River Conference on Procaryotic Genetics, at the Wind River Ranch, Estes Park, Colorado, June 5-9, 1993.

The 37th annual meeting of the Wind River Conference on Procaryotic Genetics, is being held at the Wind River Ranch, Estes Park, Colorado June 5-9, 1993. This conference is primarily concerned with the biology and molecular biology of genetic exchange systems in a variety of procaryotic and eukaryotic systems, and is the major annually occurring meeting devoted to this subject area internationally. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Specifically to address this problem, funds are being provided to partially support travel and scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas of genetic exchange and related subject areas. %%% This is the major meeting in the United States where gene exchange is discussed for a wide variety of microorganisms.